Computational Information Theory and Coding

Computational information theory is concerned with techniques (such as
channel coding) for achieving channel capacities. The field has
achieved dramatic scientific breakthroughs in recent years, and codes
that come close to theoretical limits have been discovered. Today,
the development of coding and information theory is closely related to
the explosion of information technology, with applications to the
Internet and the next generation of networks technologies. The rapid
development of a myriad of networked devices for computing and
telecommunications presents new and exciting challenges for coding and
information theory.

This project will explore interconnections among coding theory,
theoretical computer science, information theory, and related areas of
computer science and mathematics in order to deal with research
challenges arising from optical/magnetic recording and optical
transmission, the interface between information theory and symbolic
dynamics, the development of network information theory, advances in
high speed data transmission in wired channels, the connection between
coding theory and related mathematical approaches (especially using
discrete mathematics), the role of compression in all layers of data
networks, and exploiting the connections between algorithmic
complexity and notions of entropy and randomness.

Research efforts will be carried out by ``working groups'' that will
come together at DIMACS for several meetings aimed at catalyzing
communications and collaborations. Subgroups will investigate problems
of interest. The working groups will be concerned with Data
Compression in Networks and Applications and with Optical/Magnetic
Recording and Optical Transmission.

The project will integrate research and education through a series of
workshops aimed at identifying areas for research, involving large
groups of researchers in the field of computational information theory
and coding, and introducing many people (including outstanding junior
people and students) to the field. Workshops are
planned on the topics of High Speed Data Transmission in Wired
Channels, Network Information Theory, Complexity and Inference,
Information Theory and Symbolic Dynamics, and Coding Theory and
Discrete Mathematics.